Long distance signaling of iron deficiency via phloem

This project aims to discover novel mechanisms that control the uptake and distribution
of iron in plants. Part of the impetus for such discovery research is that iron deficiency
is one of the most significant micronutrient malnutrition problems facing the world
today. The World Health Organization estimates that ~1.62 billion people--~25% of the
world's population-- are affected by iron deficiency. The production of staple crops that
have elevated iron in edible parts (e.g., in the grains of cereals) is widely regarded as the
primary means by which this problem could be stably addressed. However, this goal is
thwarted because our knowledge of the molecular mechanisms controlling iron
accumulation in plants is far from complete. The scientists conducting this project have
discovered that three distinct iron transporter proteins are required in the leaves of
plants in order for those leaves to send correct signals of iron deficiency to the roots.
Since the roots take up iron in response to signals from the leaves, investigation of the
leaf transporters will reveal new mechanisms that plants use to control iron uptake. In
addition to these scientific goals, the researchers will work to enhance educational
opportunities for undergraduates and K-12 students through the development of multimedia
web modules for K-12 outreach, and the development of course based
undergraduate research experiences (CURES).

Prior work on the regulation and localization of Arabidopsis iron transporters, OPT3,
YSL1 and YSL3 has indicated that they have opposite but indispensable roles in
controlling shoot-to-root signaling of iron status. A working hypothesis that explains
current observations is that OPT3 and YSL1/YSL3 together modulate phloem companion
cell Fe status, and that low concentrations of Fe in the companion cells results in the
production of a phloem mobile signal that initiates iron deficiency regulated gene
expression in roots. In this project, a combination of transporter activity studies, protein
localization, and highly accurate determination of the metal distribution in veins will test
this hypothesis. The project scientists have established the presence of a phloem-mobile
inductive RNA signal that is capable of inducing iron deficiency associated gene
expression in excised roots. Because a simple assay system for the phloem mobile
signal has been developed, profiling experiments coupled with downstream genetic
analyses will be used to identify the phloem mobile signal produced in iron deficient
leaves that regulates root gene expression.